Large Force Tension Element Research Facility

Equipment will be utilized which will allow the development of a large force, 4.5 million and l.5 million pounds dynamic, tension element research facility. The specific equipment includes a hydraulic power supply and high performance servovalve and a data acquisition and specimen surveillance system. The equipment will provide a state-of-the-art facility to investigate and evolve new generation cables and other tension elements used in structures. Further, this equipment will be used to improve the capabilities of the large capacity tension loading research facility. The eqipment will allow faster cyclic testing and enhanced data acquisition and specimen surveillance. The equipment will allow intelligent data acquisition through computer control throughout the test. The equipment will also monitor specimen performance, such as individual wire fracture in a multistrand cable, to provide additional understanding of the cable or specimen performance. The equipment will allow basic research in this area to be performed to further enhance our understanding of cable and cable anchorage behavior under fatigue loading.